CPMSA: "STEP 2000-Student Teacher Equity Program 2000"

"STEP 2000"-Student Teacher Equity Program 2000: The Comprehensive Partnership between the East Side High School District, ESUHSD, and San Jose State University, SJSU, will build the capacity of ESUHSD to ensure that all of its students will take high level math and science courses. By the year 2000, all minority students, graduating from high school will have completed the Math and Science components of the California A-F college entrance requirements at a level of 40%, which is at parity with the average for Santa Clara County. The project will continue the reform begun by the Equity 2000 project and build upon The enlarged based of students in the ESUHSD who are completing Algebra by the 9th Grade and who are now eligible to take the higher level college preparatory math and science courses. New math and science curricula adopted in some schools to accomplish reform will be achieved at all schools, including the acquisition of new resources and the necessary teacher training. Student supportive activities in the form of Saturday Academies, Summer Institutes, Career/Resource Centers, and Homework Assistance Centers will be expanded during the project period to provide increased support for math and science learning and to increase students' knowledge about math, science, engineering and technology careers. STEP 2000 will train all of the Districts 150 mathematics teachers and all of the Districts 120 science teachers. STEP 2000 will affect all of the Districts' Grade 9-12 students, which will reach 24,000 during the Project period. The underrepresented African American, American Indian and Latino students, who presently represent 46% of the students, will be especially affected. At the end of the project period, the number of them that will be eligible to enter college and pursue math, science, engineering and technology careers will have doubled from the start of the project. STEP 2000 will complement and greatly help the other NSF funded programs at San Jose State University. Specifically, the NSF Alliance for Minority Participation program and the NSF Collaboratives for Teacher Education Program will now have adequate numbers of underrepresented math, science and engineering students to recruit from. ***